Improvement of the Chemistry Curriculum through use of FT-NMR Spectroscopy

9452084 Geisler The curriculum in the Department of Chemistry is being improved by providing hand-on experience with modern instrumentation and laboratory computers. The introduction of a 200 MHz FT-NMR is enhancing the students' experiences in organic chemistry, physical chemistry, instrumental analysis and advanced inorganic chemistry courses. The students' exposure to FT-NMR occurs gradually but steadily through classroom lectures and in the problem-solving setting of the laboratories. The project also is enhancing the ability of the faculty to teach the fundamentals and advanced aspects of NMR spectra interpretation. In addition, the instrument is being used to illustrate a number of chemical concepts including reaction stereochemistry, equilibria, kinetics, tautomerism, proton exchange and magnetic moments. An accessible NMR provides the undergraduates with the opportunity to participate in research at a higher level than would otherwise be possible.